International Symposium on Thermodynamics Applied to Biological Systems; Genova, Italy; September 11-17, 1988

Funds will partially support the travel expenses of some of the American participants to this International Symposiunm in Genoa, Italy.